SBIR Phase I: Multi-Marker Prognostic Test for Breast Cancer Outcome

This Small Business Innovative Research Phase I project will develop a multiple biomarker test to predict adjuvant treatment outcomes in patients with operable breast cancer.

The broader impact of this test will be improved clinical detection while helping to reveal previously hidden significance of individual biomarkers and biological pathways for future drug discovery activities.